PPD-FRI: Ubiquitous Environment to Facilitate Engineering Education for Blind Persons

Arizona State University (ASU) requests funds from the National Science Foundation over a 24-month period for a continuing grant in the program for persons with disabilities' focused-research initiatives (FRI) track. These funds will be used primarily to integrate hardware and software, including a wireless handheld computer, a microphone, a text-to-speech module, a digital audio recorder, and a refreshable Braille device for delivery of material for science, engineering, technology, and mathematics.